MPWG: Development of a Southern Illinois SEM Women and Girls Support Network

9453099 Shea The long-term objective of this project is to create a climate in which parents, teachers and peers encourage girls to develop their own natural interest in SEM, and to provide a sequence of exciting SEM activities appropriate for age, experience, and skill levels. Geographically, the project targets the Southern Illinois (SI) region consisting of 22 mostly rural counties, including the 9 poorest counties in the state, where the percentage of girls preparing for college is significantly lower than statewide or national averages. The target populations are: pre-college girls, their parents, teachers, and school counselors. The project is unique in that: (1) it encompasses a wide geographic area; and (2) its long-range plan is to provide a sequence of SEM experiences for girls, beginning with a broad "taste" of many SEM disciplines, and leading through successively more intense experiences to a level of mastery in chosen fields that will give the girls the self-confidence to continue on to college. A sequence of SEM activities will be set up in cooperation with the Shagbark Council of the Girl Scouts, in the St. Louis Science Center, and in the Carbondale Science Center. In grade school, the participants' curiosity will be piqued via Science Experiences for Girl Scout troops, including visits to the St. Louis Science Center. Attending Expanding your Horizons Workshops (EYH) will provide more intensive, hands-on experiences, as well as role-models of women scientists at work. For somewhat older girls, participation includes the Science Fair Cooperative Workshops; small-group work on an exhibit for the Carbondale Science Center; and in-depth, hands-on science, engineering, mathematics (SEM) experiences at a WISE summer camp. Guided by female SEM faculty and graduate students, the participants are to interact with older girls who already have experienced a more advanced phase of the project, and with role-model women scientists. Participants also a re to give a helping hand to younger girls in the pipeline. The involvement of parents, teachers and school counselors is essential, in discussions of how females best learn science, what career opportunities are open to women in SEM, etc., and in hand-on SEM experiences that they can share with the girls. The climate change envisioned for SI will be supported by a Database of Science Activities for disseminating information about SEM activities to the community, available to SI students, parents, teachers, and to public libraries, throughout the calendar year. This database will be widely advertised through SI schools, libraries, and community organizations. ***